Cooperative Agreement: Machine Tool Research

This research activity is designed to develop the theoretical and experimental knowledge base to enable the development of the next generation metal cutting machine tool. This machine tool is characterized by the properties of high speed, high power, high accuracy and high static and dynamic stability. The characteristics of high speed and power are necessary to reduce costs involved in machining. The key to achieving this goal is the development of statically and dynamically stable machine tool sub- systems, integrated to form a highly stable machine tool. Sub- systems such as stiff high speed spindles and new-material, light- weight, stiff structures will be researched and developed. Major control issues, such as spindle speed control to avoid chatter and servo systems with continuous updating of drive dynamics to reduce following error, will be addressed. Modelling and simulation of machining processes will be conducted, on a large scale, to allow the incorporation of these models into further development of Computer Aided Design and Manufacturing systems. The research is focused on developing models of machine tools for the aerospace and automotive industry, which represent the two largest segments of manufacturing. Systematic research of this nature cannot be provided by the domestic industry which is extremely fragmented and battered by overseas competition. This work will however, provide for a revival of the domestic machine tool industry, through cooperation and technology transfer, while greatly benefiting a major segment of the manufacturing sector of the United States.